Equipment for an Undergraduate Neurochemistry and Neuro- pharmacology Laboratory.

A novel interdisciplinary Neurochemistry/Neuropharmacology laboratory is being introduced into the Neuroscience curriculum at Oberlin College. The High Performance Liquid Chromatograph (HPLC) is being used to bring better chromatographic techniques into this laboratory. At the same time, improved centrifugation assay techniques are being added. With a tissue homogenizer to produce rapid and uniform cell disruption of large tissue samples prior to HPLC and centrifugation assays, a full array of biochemical research techniques for examining the nervous system is becoming available to this program. Adding a laboratory in Neurochemistry/Neuropharmacology to the curriculum allows students to apply the knowledge and skills they have acquired in basic Biology and Chemistry courses to issues and problems in Neuroscience; increases the sophistication of undergraduate research that is being undertaken; gives students a broader exposure to the approaches and methodologies currently used in the Neurosciences; attracts to the program students (particularly students with an interest in Chemistry) who previously have had little contact with the Neurosciences, and demonstrates the interdisciplinary nature of research in the Neurosciences.